Motion Detection and Segmentation in the Spatio-Temporal Space

The objective of this research is to develop a robust algorithm for motion detection and segmentation of dynamic scenes. Preliminary results in motion detection using local structures of hypersurfaces in the spatio-temporal domain are promising. They will be extended to dynamic scenes acquired using stationary as well as moving cameras. The proposed approach will be based on a combination of surface approximation and region growing for the segmentation of a dynamic scene. The applicability of the proposed algorithn to sequences in the egomotion complex log space will also be studied. Both laboratory and outdoor scenes will be used for the experimental verification of the algorithms.